Career: A Proposal Regarding the Unification of Data Reduction and Multiresolution Methods for Use in Scientific Visualization and the Education in Scientific Visualization

Real-time analysis of large-scale data sets is becoming increasingly important in a variety of relativity new fields, including computational oceanography, geotechnics (earthquake engineering), metal forming (car and aerospace industry), elasticity (analysis of plates and beams), casting, aeroelasticity, impact analysis (crash simulation), and biomedical engineering (protheses and artificial teeth). This project will develop techniques and prototype software systems for the representation and visualization of two-and three-dimensional, time-varying scientific data sets (including scalar, vector, and tensor fields) resulting from computational field simulations or physical measurements. The research issues being addressed are data reduction, multiresolution methods, spline representations, and visualization techniques or multiresolution representations based on triangular and tetrahedral grids. This research will impact the design of next-generation scientific visualization systems supporting real-time rendering of large-scale time varying data sets represented on triangulated domains